Random Matrices and Applications

Abstract
Baik

The eigenvalues of large random matrices are known to describe the
limiting behaviors of various objects in mathematics, statistics
and physics such as random permutations, zeros of Riemann-zeta
function, sample covariance matrices, non-intersecting paths and
random growth models. The investigator plans to study various
intrinsic properties the limiting distribution functions arising
in random matrix theory, as well as to apply the ideas and methods
of random matrix theory to probability models such as last passage
percolation, queueing models, non-intersecting paths and
interacting particle systems. Built on the investigator's and
other researchers' earlier work, the long term goal is to clarify
the universality class of models which are describable in terms of
the eigenvalues of random matrices using ideas from both
integrable systems and probability.